Construction of calibrated eustatic sea level curve: Mid-Jurassic through Mid-Cretaceous

The research program proposed here is based on the identification of a stable reference frame for measurement, and its utilization in the construction of a calibrated eustatic sea level curve for mid-Jurassic through mid-Tertiary. A stable frame is found in the Russian Platform on which flat-lying Mesozoic and Cenozoic marine sediments have remained undeformed since deposition. The elevation of these deposits is a measure of post-depositional sea level change, since factors such as compaction and loading are very small due to the thin nature of the deposits. As such, the Russian Platform acts as a meter stick, recording sea level through time. A sea level curve based on reliable tie points will be constructed and compared to sea level curves obtained by other means. Discrepancies will be reconciled in terms of measurement methods and mobile reference frames. In obtaining independent information regarding past sea levels, the results of this study will shed light on the passive margin processes of thermal subsidence and sedimentation, as well as the motions of active margins. As it stands now, sequence stratigraphic data must be used to infer thermal subsidence and sedimentation history, as well as sea level changes. A significant result of the proposed research project is that it will introduce another data set, so that the sea level signal can be filtered out, and sequence stratigraphic data can be used to measure thermal subsidence and sedimentation history directly. Research bears on issues of global sea level change.